Satellite Observations and Modelling of Surface Meltwater Flow and its Impact on Ice Shelves

Ice shelves slow the movement of the grounded ice sheets that feed them. This reduces the rate at which ice sheets lose mass to the oceans and contribute to sea-level rise. But ice shelves can be susceptible to collapse, particularly when surface meltwater accumulates in vulnerable areas. Meltwater lakes can create and enlarge fractures within the ice shelves, thereby triggering or hastening ice-shelf collapse. Also, water refreezing within ice shelves warms the ice and could affect the flow of the ice by changing its viscosity, which depends on temperature. The drainage of water across the surface of Antarctica and where it accumulates has received little attention. This drainage was assumed to be insignificant, but recent work shows that meltwater can drain for tens of kilometers across ice-shelf surfaces and access areas that would otherwise not accumulate meltwater. Surface meltwater drainage could play a major role in the future stability of ice sheets. This drainage is the focus of this project.

The team will develop and test physics-based mathematical models of water flow and ice-shelf flow, closely informed by remote sensing observations, to ask (1) how drainage systems will grow in response to the increased melt rates that are predicted for this century, (2) how this drainage is influenced by ice dynamics and (3) whether enlarged drainage systems could deliver meltwater to areas of ice shelves that are vulnerable to water-driven collapse. The team hypothesizes that refreezing of meltwater in snow and firn will prove important for hydrology by impacting the permeability of the snow/firn and for ice-shelf dynamics by releasing latent heat within the ice and lowering ice viscosity. The project will examine these issues by (1) conducting a remote sensing survey of the structure and temporal evolution of meltwater systems around Antarctica, (2) developing and analyzing mathematical models of water flow across ice shelves, and (3) examining idealized and realistic models of ice-shelf flow. This project will support a first-time NSF PI, a post-doctoral researcher and a graduate student. An outreach activity will make use of the emerging technology of Augmented Reality to visualize the dynamics of ice sheets in three dimensions to excite the public about glaciology at outreach events around New York City. This approach will be made publicly available for wider use as Augmented Reality continues to grow in popularity.